Ed+gineering: An Interdisciplinary Partnership Integrating Engineering into Elementary Teacher Preparation Programs

Engineering education, with its emphasis on developing creative solutions to relevant problems, is a promising approach to increasing elementary students' interest in scientific fields. Despite its potential, engineering education is often absent from elementary classes because many teachers feel underprepared to integrate it into their instruction. This project addresses this issue through an innovative approach to undergraduate elementary education programs. In this approach, called Ed+gineering, undergraduate elementary education majors team with undergraduate engineering majors to develop and teach engineering lessons to elementary students in out-of-school settings. In this project, over 500 elementary education majors will team with engineering majors to teach engineering design to over 1,600 students from underrepresented groups. These standards-based lessons will emphasize student questioning, constructive student-to-student interactions, and engineering design processes, and they will be tailored to build from students' interests and strengths. The research team will study whether Ed+gineering is correlated with positive outcomes for the elementary education majors. They will also study whether and how the elementary education majors subsequently provide engineering instruction during their first year of licensed teaching. This project will advance knowledge by resulting in a model for teacher education that has the potential to improve future elementary teachers' confidence and ability to teach engineering. In turn, more elementary students may have opportunities to experience engineering as they discover how innovative applications of science can be used to solve problems in the world around them.

Researchers at Old Dominion University will study whether a teacher preparation model is associated with positive outcomes for pre-service teachers while they are undergraduates and in their first year as professional teachers. Undergraduate elementary education majors and undergraduate engineering majors will work in interdisciplinary teams, comprised of four to six people, in up to three mandatory collegiate courses in their respective disciplinary programs. Each semester, these interdisciplinary teams will develop and teach a culturally responsive, engineering-based lesson with accompanying student materials during a field trip or after-school program attended by underrepresented students in fourth, fifth, or sixth grade. Using a quasi-experimental design with treatment and matched comparison groups, researchers will identify whether the teacher preparation model is associated with increased knowledge of engineering, beliefs about engineering integration, self-efficacy for engineering integration, and intention to integrate engineering, as determined by existing validated instruments as well as by new instruments that will be adapted and validated by the research team. Additionally, the researchers will follow program participants using surveys, interviews, and classroom observations to determine whether and how they provide engineering instruction during their first year as licensed teachers. Constant comparative analyses of these data will indicate barriers and enablers to engineering instruction among beginning teachers who participated in the Ed+gineering program. This project will result in an empirically-based model of teacher preparation, a predictive statistical model of engineering integration, field-tested engineering lesson plans, and validated instruments that will be disseminated widely to stakeholders.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.